REU Site: Research Experiences in Computer Science for Students at Undergraduate Institutions

The primary objective of the investigators is to encourage talented undergraduate
students to pursue graduate study and research careers in computer science. The
program directly impacts students by giving them first-hand experience with some
of the most rewarding activities that characterize graduate study and research
careers: conducting research as a team, disseminating results, and participating
in a community of scholars. The research projects are drawn from a number of
important fields of computer science. The importance of teamwork and participating
in a scholarly community is emphasized to the students. It should be noted that all
of the student participants in this program are enrolled at undergraduate-only
institutions. Thus, the program extends research experiences to students who are
not enrolled in large research institutions, and who thus might not have the
opportunity to participate in research otherwise.

The particular projects vary with the specialties and interests of the faculty
members participating in any given year. Project areas include pen-based computing,
computer-supported cooperative work, assistive technology (text navigation for the
visually impaired), natural language processing (text summarization), functional
programming languages, wireless sensor networks, programming pedagogy, and virtual
reality. In addition to providing an orientation to their research projects,
faculty mentors sponsor orientation activities to help the students appreciate the
nature of research and the value of working cooperatively. Students are encouraged
to collaborate formally and informally. Students have several opportunities to
present their work to other REU participants as well as to external audiences.
Finally, students learn about the graduate school application process in part by
visiting a major research university.